A Model Curriculum For Civil Engineering Technology

This project is conducting planning activities for the development of a model curriculum based on an existing program at Evergreen Valley College. The envisioned curriculum will integrate new technologies such as GIS, GPS, CADD and computer-aided math into civil engineering technology. Design constraints envisioned include an expandable certificate program that includes all course descriptions, textbooks, assignments, lab activities, and fieldwork.